III: Small: Collaborative Research: Cost-Efficient Sampling and Estimation from Large-Scale Networks

Sampling and estimating structural information from
large-scale networks or graphs has been central to our
understanding of the network dynamics and its rich set
of applications. Markov Chain Monte Carlo (MCMC) has
been the key enabler for a broader context of graph
sampling, including estimating the properties of large
graphs, sampling the corpus of documents indexed by
search engines, sampling records from hidden databases
behind Web forms, identifying subgraphs of certain
characteristics and frequent graph pattern matching.
Despite versatile applications of the MCMC methods and
their customized algorithms for analyzing
graph-structured data in various forms, there still
exist critical challenges and limitations in the
literature centered around the MCMC methods. One is the
'cost' consumption/constraints associated with the
sampling operation, which limits the size of total
samples obtained and negatively affects the accuracy of
any estimator based on the obtained samples. Another
limitation is that the recent advances in MCMC,
especially built up on favorable non-reversible Markov
chains, cannot be leveraged to the various large-graph
sampling tasks, due to their required global knowledge
of the underlying state space, lack of distribution
implementation, unconstrained state space, as well as
the simplified cost assumption. The goal of this research is to fully exploit the
potentials of a set of crawling samplers by making the samplers adaptive and possibly
interactive on a properly constructed graph domain, to
transcend the current status-quo in the wide range of
graph sampling tasks.

Specifically, the project aims to: (i) build a theoretical framework to
construct a suite of cost-efficient sampling policies
by optimally balancing the tradeoff between the sample
quality and quantity under challenged access
environments with a given cost budget, (ii) design a
class of adaptive random walks by fully exploiting the
past information to achieve minimal temporal
correlations over the obtained samples and by
controlling the random walks collectively to enable
maximal space exploration, and (iii) extend the
standard MCMC toolkits toward faster and more
cost-efficient exploration of feasible
subgraphs/configurations and computing/optimization on
a graph, along with extensive validations to create
practical and usable solutions in reality. This
research has a high potential impact on a vast range of
multi-disciplinary applications, including sampling
large-scale graphs for statistical inference and
efficient estimation and randomized algorithms for
combinatorial optimizations in various disciplines,
where the standard MCMC methods have been dominant but
also constrained our understanding.